Real-Time Dynamics of Correlated Electrons (Physics)

The time-dependent Schr`dinger equation for atoms and quantum dots in strong femtosecond laser field is solved using a novel basis set selection technique. The objective is to study the effects of electron correlation on the dynamical properties of these systems. The research is partially supported by the Division of Physics, the Division of Materials Science and Office of Multidisciplinary Activities of the Mathematics and Physical Sciences Directorate.